Geochronology and Geochemistry of Late Cretaceous-Tertiary Magmatism Across Central Sonora, Mexico, and Its Tectonic Significance

In Sonora, Mexico, a diverse and prolific record of magmatism from Late Cretaceous onward overlaps two regionally important deformational events - Laramide compression and Tertiary extension, associated with motion along the adjacent margin of western North America. This project will significantly expand geochronologic and geochemical information across the complex magmatic belt by K/Ar and U/Pb techniques. Results will provide a framework for understanding Sonoran volcanism and its relationships to plate interactions in the southwestern U.S., Mexico and the Caribbean.